Conference on Nonlinear Statistical Models: Implementation and Application

This award provides partial travel support and local expenses for 10 graduate students and/or new researchers to attend the conference and tutorial session on Nonlinear Statistical Models on November 4-6, 1999 at the University of Kentucky, Lexington, Kentucky. The conference will focus on the development and implementation of nonlinear stochastic models and particularly, the application to problems in the biological sciences and industry. Four major sessions are proposed: General Linear Models, Pharmacokinetic Models and Generalized Compartment Models, Mixture Models, and Applications of Models and Industry. Each session will feature a keynote address and approximately three half-hour talks by leading experts in the field. The conference begins Friday morning, November 5, and runs through Saturday afternoon November 6, 1999. In addition, a special one-day workshop consisting of two tutorials will be held on Thursday November 4, prior to the conference. The topics are: An Overview of Compartmental models, taught by Professor David Allen, and Algorithms for Nonlinear Models, by the conference organizers. Graduate students and new researchers are encouraged to attend the tutorials, and also present their research in a special poster session.